Purchase of Rapid Scan Wide Band Polarized Specular Reflectance Microspectrophotometer

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Franklin and Marshall College, which is an undergraduate school, acquire, maintain and operate a Polarized Specular Reflectance Microspectrophoto meter. The areas of chemical research that will be enhanced by the acquisition include: 1) Polarized Specular Reflectance Spectroscopy on Binuclear Metalloprotein Models and Porphyrinic One-Dimensional Conductors. 2) Polarized Spectroscopy of Porphyrin Analogs and One- Dimensional Porphyrinic Conductors. 3) Polarized Electronic Spectroscopy in the Determination of Solvent Effects on Solution Photophysics. 4) Spectroscopic Studies of Metalloprotein Active Sites. Polarized specular reflectance spectroscopy is used to study the spectroscopy of absorption bands, where the spectral data on structurally defined inorganic complexes correlate the electronic structure with the geometric features of the metal complexes. This correlation provides definitive spectral assignments which allows the unique electronic structures of the complexes to be known.